Family Behavior, Human Capital, and the Economy

In this accomplishment-based renewal project, Gary Becker will continue his research that links the family to investments in human capital, bequests and other types of physical capital accumulation, economic inequality, and economic growth. One study will be an expansion of A Treatise on the Family. It will include a response to some of the criticisms and discuss several additional issues. Particular attention will be paid to the so-called "Rotten-Kid Theorem", which states that, under certain conditions, beneficiaries of altruists have incentives to behave altruistically to their benefactors, even when beneficiaries are selfish. One defect is that the Treatise does not interact parental altruism with other attitudes of parents towards children. That is, the degree of parental altruism is not fixed. The new work will show that such links between the behavior of children and the degree if parental altruism help overcome various inefficiencies that can result from altruism, such as the so-called "prodigal son" issue. Other work will continue on the relationship between family behavior and economic growth by incorporating endogenous fertility into a neoclassical growth model. In a related study, endogenous fertility is combined with physical capital as well investment in human capital. Two states tend to emerge - one with low human and physical capital, low income, and high fertility - and another with low fertility and high human and physical capital and income. The research will attempt to explain why human capital increases relative to physical capital when countries grow, why fertility declines when countries get richer and why luck and other temporary events may have an effect on whether a country grows or stagnates. Another line of research will be on how the division of labor and specialization with regard to human capital varies with economic growth and other variables. Stressed here will be importance of coordination costs and the extent of general knowledge (since increased accumulation of general knowledge raises the growth rate partly by inducing greater specialization).